Problems in Fluid Dynamics and Elasticity

Research is proposed on the following topics:
1. Breakup of liquid jets: This research will mathematically analyze
the capillary breakup of jets of Newtonian and viscoelastic liquids. The effect
of polymer additives in suppressing breakup is well known and exploited both
in nature (spider webs) and in technology (control of drops sizes in spraying
of liquids). The research will concentrate on the asymptotics of breakup and
compare various constitutive theories.
2. Stability of viscoelastic flows: Elastic instabilities have been
investigated extensively over the past ten years. Such instabilities often
pose limits for polymer processing conditions. In the numerical investigation
of instabilities in complex flows, continuous spectra which are poorly resolved
pose a significant challenge. The research is aimed at using analytical
techniques to determine the location of these continuous spectra.
3. Shape control in elasticity: An elastic medium is controlled by
actuators which can supply a stress of a given type. The research will
investigate the question whether such controls can achieve a given shape of
the medium.
4. Numerical simulation of two-fluid flows: The research will continue
work on simulation of flows of two liquids using a volume of fluid code. The
following three problems will be investigated:
a) Formation of ``staircase" structures on impacting drops due to
capillary waves.
b) Tipstreaming in drop breakup under shear when surfactants are
present.
c) Effect of normal stresses on breakup of viscoelastic drops under
shear.

The proposed research addresses fundamental issues which arise in the processing and
use of polymeric liquids, the control of deformations of elastic solids and the
formation of emulsions by shear mixing. The proposed topics include a comparison of
the qualitative behavior various models of polymeric fluids in jet breakup, the
stability of polymeric flows, the question which shapes of an elastic medium can
be achieved by a given type of control, and the development of numerical methods for
two-fluid flows.